Algorithms and Existence Theorems for Cooperative and Dynamic Games

Theorems and algorithms for Cooperative
and Dynamic Games:

T.E.S. Raghavan, University of Illinois at Chicago

One of the main problems of the proposal in
cooperative game theory is to find efficient
algorithms to solve for the nucleolus of
combinatorial TU games, based on the successful
algorithms for assignment and interval games.
A second problem is to study games with stable
cores. In particular to study core stability for
combinatorial games such as assignment games.
In coalitional bargaining we will look for subgame
perfect stationary Nash equilibria of perfect
information games which approximate in its payoff
the nucleolus payoff. In the area of dynamic games,
we would like to extend the policy improvement
algorithm for undiscounted stochastic games
of perfect information. We would formulate models
of tax evasion as dynamic games and study their
equilibria.

The problems in cooperative games posed above
are physically motivated by the following questions.
Federal and state governments undertake costly construction
facilities like bridges, freeways, water and sewer pipes,
railroads and airports. Often the critical decision
facing the government is to distribute the total cost
among the users in an equitable way. The algorithms to
be developed will help to arrive at such equitable costs
after properly modeling the problems as cooperative games.
Tax offices are flooded with tax returns; Indutrial
corporations are flooded with vouchers for payment
approval; automobile manufacturers are supplied with large
consignment of automobile parts for quick acceptance.
Auditors are few in number to audit all tax returns;
accountants are few to check all vouchers; laborataries
and manpower are limited to test for all defective items.
One can classify the tax returns or vouchers or suppliers
into various categories and make decisions on which items
in the tax return or voucher to audit; what percent of
defective items in a sample require acceptance or more
testing. Depending on the outcome of auditing, or sequential
sampling one can make new decisions on how frequently
one should audit the future returns and vouchers from
the specific class of violators. In polluting the
environment, the violators are often big manufacturers.
If the pollutants are distinct, then polluters are some
what identifiable and the cost of cleaning can be
decentralized. If the pollutants are of a few type, then
one knows roughly which groups of polluters could have
contributed to which type. The levels of violation would
require sporadic or systematic inspection. In a way
the total cost has to be collected by suitable taxing
policies that could vary depending on the levels of
pollution. For an ordinary home owner sewer charges are
simply tied to the water usage. When the polluters are
confounded one has to identify polluters by sending
inspectors now and then to make spot check for
environmental violations and punish violators by
various penalties. In such problems the algorithms
to be developed will show the formal ways of arriving at
cost figures or inspection strategies that are both
intuitively and scientifically defendable.